International Research Fellow Awards: The Role of DNA Interstrand Crosslinks in the Premature Senescence of Repair-Deficient ERCC1-/- mice

9900963
Niedernhofer
The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twentyfour months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad.
This award will provide support for an eight-month postdoctoral research visit by Dr. Laura J. Niedernhofer to work with Dr. Jan H. J. Hoejimakers at Erasmus University in Rotterdam, The Netherlands.
Dr. Niedernhofer's research hypothesis is that the protein ERCC1 plays a critical role in repairing DNA interstrand cross-links by a mechanism that is independent of nucleotide excision repair and that the accumulation of DNA interstrand cross-links in the tissues of ERCC1 knock-out mice contributes to their premature senescence (aging). The ultimate goal of this project is to prove a causal role for the interstrand cross-links in the senscence phenotype of these mice.
Dr. Hoejimakers' lab is one of the best in the world in the area of DNA repair, having cloned several key XP genes and developed important mouse knock-out models.
***